NSF-CNPq Collaborative Research Proposal on solitons, integrable theories and inifite-dimensional symmetries

NSF-CNPq Collaborative Research Proposal on solitons, integrable theories
and inifite-dimensional symmetries:
This is a proposal for a travel grant within the NSF-CNPq Collaborative Research
program. The project will enable continuation of a long-term collaboration of the PI,
Professor Aratyn, with Profs. L.A. Ferreira (University of Sao Paulo), and J.F. Gomes
and A.H. Zimerman (State University of Sao Paulo) on fundamental features of
integrability and further development of its applications in a variety of modern physical
contexts.
The collaborators plan to combine efforts to improve knowledge of various integrable
models in two and higher dimensions, their algebraic and analytic aspects and ties
between them. They expect to make advances on the following topics: understanding
of new integrable models (with and without supersymmetry) emerging from
deformations of bihamiltonian structures; construction of non-abelian Toda models with
internal degrees of freedom and its soliton solutions; the Riemann-Hilbert factorization
problem applied to gradations other than the homogeneous ones and the tau functions
of topological field theories described by the Witten-Dijkgraff-Verlinde-Verlinde equation;
and soliton solutions of higher-dimensional integrable models
and their structure.
The broader impacts resulting from the proposed activity are in the educational
component. Its objectives are to train young researchers in new methods and
techniques of the theory of integrable systems and their applications. There are a large
number of graduate students in the Brazilian hosts institutions of Drs. Ferreira, Gomes
and Zimerman The travel grant will involve all senior collaborators in training and
mentoring arrangements. Several former Brazilian students and one US student now
hold academic positions and continue to contribute to the field.